Science 2000 - An Innovative Appoach to Introductory Science for Undergraduates

The proposed project provides an option for fulfilling general education requirements which is an alternative to traditional General Biology/General Chemistry/Pnysical Science courses. Ferrum College will institute a series of courses called the Science 2000 Progra designed primarily to help non-science majors develop confidence and competence in dealing with scientific issues. The approach recognized the importance of incorporating knowledge of student learning styles and motivation into science teaching. For the general education science requirement represents the capstone of a student's science education, not an introduction to a scientific discipline. The student should leave such courses understanding nature of scientific inquiry and the ability of scienc eto address meaningful issues and concerns. This grant will assist faculty in developing and implementing the philosophy of the course through summer workshops and release time to concentrate on course development and to interact and assist each other in developint the new approach.